Stability of Fine Microstructures in Thin Films

9319896 Bauer The effects of temperature, internal strain, current density, and applied stress on the stability of fine microstructures in thin films are investigated using a combination of theoretical, computational, and experimental methods. The theoretical and computational methods involve evaluation of transport processes induced by capillarity, mechanical stress, and/or electric field in polycrystalline thin films. The experimental methods involve application of continuous, alternating, or pulsed electric and/or mechanical fields to mono, bi, tri, or polycrystalline thin films of either aluminum or gold, and dilute alloys thereof, measurement of electrical resistance, and characterization of corresponding microstructure by optical, scanning electron, transmission electron, scanning force, and scanning auger microscopy. These methods are combined to investigate the degradation and eventual breakup of polycrystalline thin films by capillarity, mechanical stress, electric field, and combinations thereof. %%% This study is expected to clarify the origin and behavior of many microstructural features associated with degradation and eventual failure of thin films. Improved fundamental understanding of the stability of fine microstructures in thin films is essential for effective production of sub-micrometer devices required for advanced technological applications. ***